Integrated Auto-ID Technology for Multidisciplinary Undergraduate Studies (I-ATMUS)

Engineering Technology (58)

This project is increasing the understanding of Automated Identification (Auto-ID) technology in supply chain, logistics, material handling, production planning and automated manufacturing. The PIs are creating an Auto-ID laboratory and testing facility, incorporating this technology across numerous industrial engineering courses. The testing environment includes both hardware and software suitable for multiple industrial applications. Also being developed is an online course in Auto-ID with an associated website where students and industry partners have access to lectures and examples of best practices. An interactive experiment website is allowing students to control laboratory machinery through the internet, viewing the readings of the Auto-ID equipment on-line.

Surveys, interviews and focus groups are being used to evaluate the course materials developed and the impact on student learning. The evaluation results are being disseminated through conferences. Student projects and annual reports for developed applications are available for use through the project website.